Analytical Appliations of Nonlinear Laser Spectroscopy

This research is in the general area of analytical and surface chemistry and in the subfield of laser spectroscopy. This research involves the use of lasers to achieve four wave mixing for performing site selective spectroscopy in complex mixtures. It is further proposed to eliminate inhomogeneous broadening in materials with disorder, to provide selectivity through the vibrational modes of an analyte and to work with samples that are nonfluorescent. The overall focus of this research is on the use of vibrational resonances as a site selective laser technique. These methods will primarily use infrared excitation followed by high order nonlinear mixing. In addition, the PI proposes to develop infrared-optical double resonance with fluorescence detection as a technique with the selectivity of vibrational spectroscopy and the sensitivity of fluorescence spectroscopy. This research will use multiple lasers to achieve selective analysis of complex mixtures through the use of the vibrational modes of an analyte. In additional to added selectivity, these techniques may also approach the sensitivity of fluorescence measurements.